Computational and Algorithmic Representations of Geonetric Objects - CARGO: Degeneracy Detection for Curved Solids

DMS-0138446
John Keyser

Degeneracies are a major source of robustness problems
in many geometric algorithms. Many degenerate situations
can be expressed as a root of a multivariate system of
polynomials. We propose to study the use of toric resultants
to detect degenerate situations in solid modeling applications.
By taking advantage of the underlying monomial structure
of a system of polynomials, the toric resultant can provide
a method for solving systems of polynomials that is
dramatically more efficient than the classical "dense"
resultants of Macaulay and Cayley. We will focus on
application to boundary evaluation for curved solids.
Our work will include enumeration of degenerate conditions
and identifying detection algorithms for each category,
using the toric resultant where appropriate. The work
is intended to foster future collaborative research
endeavors on topics including resolution of geometric
degeneracies, general algebraic number computation, and
computational Morse theory.

Geometric degeneracies occur when a minor perturbation
of the geometry would cause a qualitatively different
positioning between the objects. Degeneracies, such as
two overlapping surfaces or a vertex of one object lying
on the face of another, are common occurances in many
real-world solid modeling examples. The problems of
detecting and dealing with degenerate situations becomes
particularly difficult when dealing with curved surfaces.
Usually, detecting such cases involves finding roots of
polynomials. Thus, accurate and efficient root-finding
is crucial to an effective approach for handling
degeneracies. The toric resultant is an approach for
finding solutions to systems of polynomial equations.
Because of its efficiency compared to other methods of
solving such systems, it is a promising approach
for detecting and treating degeneracies. We propose
to address degeneracies in solid modeling applications
through the use of the toric resultant.